Mathematics Concentrations in Economics and Chemistry

9455972 Butler This project is designed to enrich mathematics courses at all levels of the curriculum by incorporating applications to and perspectives from economics and chemistry and to enhance the teaching of mathematical methods in economics and chemistry courses. In the first year of the project, development of curricular materials are being undertaken at Haverford and Princeton in economics and at the University of Chicago in chemistry. Development and dissemination of these materials is catalyzing formation of two coalitions, one for mathematics and economics and one for mathematics and chemistry. This project is developing sample materials which can later be expanded into a project for national impact. The project involves close interdisciplinary cooperation, participation of graduate and undergraduate students, and team-teaching through faculty Sabbaticals. In particular, a workbook incorporating sophomore mathematics (multivariable calculus, linear algebra, and differential equations) with its applications to chemistry is being written by interdisciplinary teams for widespread dissemination.